Workshop on Algorithms and Complexity in Wireless Networks, April 4 - 5, 2006, Las Vegas, USA

The purpose of this workshop is to address the research and development efforts on the various issues in the area of algorithms and complexity in the current and next generation infrastructure and infrastructureless wireless networks. In particular, this workshop is focusing on topics dealing with effective and efficient state-of-the-art algorithms, complexity analysis, comparisons, design and analysis, implementation and experimental studies in wireless networks. The workshop also includes discussion of future research directions that are likely to have the highest and broadest impact, as well as identify collaboration opportunities between industry and academia.